SGER: Biological Removal of Cyanobacterial Toxins During Drinking Water Filtration

0311983 Batista This is a proposal to investigate and evaluate the hypothesis that cyanobacterial toxins can be biologically removed during drinking water filtration. Under bloom conditions, some species of cyanobacteria are capable of producing and releasing toxins at levels that impose considerable health risks to animals, livestock, and humans. The specific focus of this project will be to determine whether biodegradation of toxins occur in drinking water filters, for short detention times.